The Chemistry Curriculum: Establishing New Traditions

9450615 Treichel A consortium led by the Chemistry Department of the University of Wisconsin-Madison will develop a new chemistry curriculum that will have three major components: integrating general, analytical, and organic chemistry into a two-year sequence built around a topic-oriented approach; introducing active-learning techniques such as cooperative group learning, discovery learning, and computer-aided instruction into all courses throughout the curriculum; and developing a variety of intellectual tools that students can apply effectively to significant problems, and that can be packaged and disseminated to a variety of institutions. A large number of individuals representing a wide variety of types of institutions will participate in a curriculum planning conference that will generate a large set of ideas from which specific curriculum reforms can be developed. In two subsequent workshops a smaller group will select the best of these ideas and develop a plan for comprehensive curriculum reform. UW-Madison's tradition of commitment and excellence in undergraduate chemistry education, our ability to attract many excellent chemists/educators as participants in the planning conference, and our established means of dissemination make us uniquely suited to carry out curriculum reform.